"Frontiers of Supercomputing II: A National Reassessment"

This Interagency agreement supports the "Frontiers of Supercomputing Conference" to be held August 20-24,1990 at the Los Alamos National Laboratory, Los Alamos, NM. The conference will focus on the broad aspects of technology as it relates to national policy and directions. Participants at the conference will be from government agencies, some U.S. Senators, industrial representatives from the NSF supercomputer centers.//